Selection of Linked Genes

The purpose of this program is to unify into a single coherent structure the various theoretical results that have been obtained on special models of the interaction of selection and recombination in populations. By numerical and mathematical solutions of the equations of gametic frequency change and equilibrium, the various special cases of selection that have been explicitly solved up to the present time will be related by a continous deformation that connects them with general models of viability selection. Thus, for arbitrary selection regimes it will be possible to predict the equilibrium gametic structure when recombination is taken into account. By solving the equations over the entire range of the variables, including a range outside the biologically realistic one, and then placing the "window" of biologically realistic limits of the values on the solutions, the selection/recombination dynamics for arbitrary selection values will be followed throughout the space of the selection and recombination parameters. This is of considerable application because polymorphisms within very short linkage distances are now abundantly demonstrated from DNA sequencing and restriction fragment studies. The haplotypes in populations show considerable non-random association of sites, so a complete theoretical treatment of selection in the tightly linked systems is needed. This theoretical study should result in a general picture of the effect of natural selection on the genetic composition of a population when recombination is taken into account.